Nuclear Structure in the Mass 100 Region (Physics)

This is a Research Opportunity for Women award in nuclear theory to support the development of an advanced IBM2 code to be used in the analysis of data for transitional nuclei.